UNIDATA - Based Weather Laboratory

A network of X-terminals and workstations linked to Zephyr satellite data receiving systems allow the interactive display and analysis of weather data in classroom activities. Both historical data ('Weather Disk' CD-ROM) and current daily weather data (UNIDATA channel) are available. Specific activities include review of the daily weather maps, as well as synoptic and dynamic weather elements. Also, vertical temperature profiles, isopleth mapping, evolution of weather patterns, and statistical forecast evaluation is quickly obtained through the use of the graphics workstations. This project also allows teaching of a new Honors section focusing on modeling. This gives students a better understanding of atmospheric science, weather analysis, and forecasting. They also investigate specific phenomena using historical data.